U.S.-France Cooperative Research: Deduction with Constraints.

9314412 Ramakrishnan This three-year award supports U.S.-France cooperative research among three research groups at the State University of New York, Stony Brook, the CNRS' Research Center in Information Sciences, and at the Nancy campus of INRIA (French National Institute for Research in Information Sciences and Applied Mathematics). The U.S. investigators are I.V. Ramakrishnan, Leo Bachmair, and Jieh Hsiang and the French investigators are Helene and Claude Kirchner and Michael Rusinowitch. The objective of their research is to investigate the use of constraints in the design and implementation of high performance deductive computing systems. They will focus on parallel automated deduction with constraints; methods for fundamental operations in deductive systems and program analysis of logic programs. This project takes advantage of complementary expertise of the U.S. and French groups. The U.S. investigators bring to this collaboration their strengths in theory and application. The French group at Nancy are considered leaders in software development as it relates to term rewriting and constraints. This investigation will impact software design for high performance computing systems and has important applications in logic programming. ***